Studies of Scintillation Phenomena in the Ionosphere

Solar radiation in the ultraviolet and X ray regions ionizes the upper atmosphere during the daytime above an altitude of about 80 km. The D and E regions of ionization that are located below about 120 km absorb radio waves fairly strongly, but the ions recombine rapidly after sunset. This leaves ionization in the F region at heights from 200 to 300 km that recombines only slowly during the night, and is normally a good reflector of radio waves, making possible long distance radio communication at night. However, at times the layer becomes quite irregular and inhomogeneous and produces fading and distortion of radio transmissions, and for high frequency transmission from satellites produces "scintillation" that has similar deleterious effects. The layer irregularities are generated by electric fields and F region winds in ways that are not fully understood. The purpose of the present work is to obtain data on scintillation at latitudes ranging from the equator to the polar caps, and to perform computer simulations and modelling, in a research program designed to give a better understanding of the global ionospheric-thermospheric dynamics that are responsible for the generation, evolution, and dissipation of these irregularities.